Theoretical and Computational Studies of Chemical Reaction Dynamics and Electronic Spectroscopy in Solution

Hyung Kim is supported by a grant from the Theoretical and Computational Chemistry Program to continue his research in chemical reaction dynamics and electronic spectroscopy in solution. Kim will implement the Born-Oppenheimer reaction field theory with quantum chemical techniques to make a detailed comparison with existing self-consistent methods for treating solvation. The solute-solvent electronic correlation effects on solvation of small molecules and reaction free energetics of charge shift processes will be investigated. This approach should clarify some of the shortcomings associated with the self-consistent approach with regard to overestimation of activation barriers for 2+2 cycloadditions. Furthermore, a reaction field approach involving quadrupolar polarization will also be developed for treating solvent systems such as benzene and carbon dioxide. Solvents to be studied include alcohols, amines, alkanes, cycloalkanes and aromatic systems. An effort will also be made to understand and quantify the solvation properties of normal and supercritical water. Excellent theories are available for understanding gas phase chemical reactions involving binary encounters between molecules. However, most chemical reactions of technological importance occur in condensed phases consisting of reacting solutes dissolved in non-reacting solvents. The effect which the solvent has on chemical reactions, and theoretical methods for dealing with this complex interaction are still in early stages of development. Nevertheless, progress in this area of research can have an important long range impact on our fundamental understanding of chemical reactions of industrial significance. Kim's research is helping to provide a theoretical basis for the interpretation of solvent effects on chemical reactions in condensed phase systems.